Metal Forming Equipment for Manufacturing Processes Laboratory

Jayanta K. Banerjee DUE 9552041 U of Puerto Rico Mayaguez FY1995 $ 38,711 Mayaguez, PR 709 ILI - Instrumentation Project: Engineering Title: Metal Forming Equipment for Manufacturing Processes Laboratory The present proposal is aimed at asking for funds in the form of equipment grant for adding the metal forming section in the manufacturing processes laboratory. The Mechanical Engineering Department of the University of Puerto Rico at Mayaguez offers two compulsory courses, a lecture course (INME 4055) of 3 h/w and a laboratory course (INME 4056) of 3 h/w, to the senior undergraduate programs of Mechanical Engineering as well as Industrial Engineering Departments. While the lecture course INME 4055 deals extensively with the theories and analyses of metalforming processes, such as rolling, extrusion, forging, drawing, high energy rate forming, etc., the laboratory course INME 4056 offers no experiment on metalforming, that is needed for complementing theory with laboratory practice. The laboratory offers practice on machining, casting, welding and metrology. A total void of laboratory in the area of metalforming, therefore, produces an extreme imbalance of practical experience between material removal processes (machining, grinding etc.) and material forming processes (bulk deformation, sheet metal forming etc.). This proposal, if and when accepted, will serve the propose of filling the void between theory and practice in INME 4055 and INME 4056.